Instrument for Electrical Surface Characterization During Processing

This instrument is designed to monitor the work function of surfaces during processing. It will measure the contact potential difference between the surface and an inert reference electrode by avariable capacitance non-mechanical, non-contact technique. The instrument design allows monitoring of surface electrical properties of high Tc oxide superconductors during manufacture of SQUIDS and RF cavity structures, and of semiconductor wafers during processing. A modulation technique allows higher frequency operation than standard methods, offering lower noise, faster response, and greater resolution.